ATI: High Sensitivity VLBI Arrays: Towards Imaging an Event Horizon

This project will support the development of wideband Very Long Baseline Interferometry arrays through deployment of enhanced backend and array-phasing instrumentation. The Very Long Baseline Interferometry arrays enabled by this work will bring significant new capabilities to the astronomy community through upgrades of national facilities, and will enable millimeter/submillimeter wavelength Very Long Baseline Interferometry arrays with the ability to resolve the event-horizon of a super-massive black hole.